Collaborative Research: The Effects of Aquatic Photochemistry on the Proton and Metal Binding Properties of Dissolved Organic Matter in Freshwater Systems

0087695
Zafiriou

Freshwater dissolved organic matter (DOM) strongly affects many important processes, particularly
in organic-rich systems. Recent reports show that (1) the major term in the proton balance of the highly
colored Satilla River is "organic alkalinity," and (2) that photoreactions in this water, catalyzed in part by
Fe, consume O2, bleach color, and form CO, CO2 (the major product), and Fe(II). We hypothesized that
CO2 arises by Fe-catalyzed "photodecarboxylation":
DOM-COO-H + O2 + hv_______ Fe
DOM-H + CO2
a well-known reaction for simple molecules. The implied massive loss of the principal organic ionizable
groups should profoundly influence many important properties of photo-altered DOM (hv-DOM): e.g.
metal-binding capacity, acid-base properties, hydrophobic binding, adsorption/coagulation,
bioavailability, optical properties, and perhaps behavior in water purification (e.g. chlorination).
However, an initial study determining and modeling Satilla water's whole pH titration curves before vs.
after photolysis (solar simulator) falsified the hypothesis above: for every CO2 formed only ~ 0.1 acidic
group was lost; pH decreased (stronger acids formed than were consumed). Furthermore, Fe was involved
in the changes observed.
Objectives: Hence we are proposing (1) better characterizing the relationships among CO2 evolution,
proton binding sites (concentrations and affinities), and other variables: [Fe], pH, [O2], light dose, and
wavelength; (2) assessing the generality and environmental variability of these effects by studying other
riverwaters, sampled in different seasons; (3) examining the effect of these changes on an important
physico-chemical property of hv-DOM: its copper binding strength and capacity, and (4) formulating a
better heuristic scheme than the hypothesis above to rationalize the results chemically. Clearly to some
extent photo-generated CO2 does not originate simply from -COO
-
groups. Acidic groups, if lost, seem to
be replaced by similar but not identical new acids from DOM photo-oxidation.
Work Plan and Methods: This is a collaborative effort among a postdoctoral associate and two PIs with
experience in organic/inorganic alkalinity-pH-CO2 properties, and DOM photochemistry. We are using
optimizations of methods demonstrated to apply to this problem, and well-known Cu-binding study
methods. The Altamaha, a more typical second river chosen for study, is also DOM-rich. Its DOM is
thought to be derived from both allochthonous and autochthonous sources, in contrast to the Satilla's
mainly allochthonous, highly colored DOM. Suwannee River water and well-known isolates of its humic
and fulvic acids (SRFA, SRHA) are also being studied, since in organic-rich colored waters these
fractions comprise a major portion of the DOM, organic alkalinity, and light-absorbing material.
Education: This project contributes to training in environmental science by involving an independent-working
postdoctoral associate and graduate students at UGA and WHOI.
Societal Impacts: This study increases our understanding of processes potentially affecting water
transparency, potability and treatment (e.g. chlorination), aquatic biota, and also the binding, transport,
and transformations of agrichemicals and pollutants (especially Cu).